EHS: Real-Time Distributed Control Networks: Dynamic Bandwidth Allocation via Adaptive Sampling

Ian A. Gravagne, Baylor University, Real-Time Distributed Networks: Dynamics Bandwidth Allocation via Adaptive Sampling

This research applies an emerging field of mathematics
known as Dynamic Equations on Time Scales to the problem of bandwidth
utilization in real-time distributed control networks. Time scales
theory allows for the seamless analysis of dynamic processes on
continuous, discrete, or mixed time domains, including non-uniform
discrete time domains. Recent advances in time scales show that periodic
servo control processes on distributed networks can adapt their timing
characteristics in the presence of aperiodic high-priority traffic
bursts without losing control of their plants. The adaptive servo timing
method results in an increase in the effective available bandwidth for
aperiodic traffic and better integration of the overall
plant/processor/network system. Study of the theory of time scales is
leading to further advances toward the unification of continuous and
discrete systems as well. This unique application
of an area of mathematics previously unknown to the computer science and
engineering communities has the potential to stimulate external
research into related topics such as network scheduling and real-time
control performance.

The project will pursue empirical validation of the new theory on a 40-node
Controller Area Network of embedded processors developed at Baylor
University. Successful research in this area has immediate
utility and potential economic impact for a large industrial base
employing distributed control networks, notably in the automotive,
aerospace, and manufacturing industries. Baylor's
relatively new graduate engineering programs will continue to support
the educational needs of engineers employed by local industries in the underserved Central Texas area.